Three-Dimensional Inverse Heat Conduction for Calculating Local Surface Temperature and Heat Flux

ABSTRACT CTS-9400647 A. Haji-Sheikh The proposal is to explore an inverse method for solving three-dimensional heat conduction problems based on Green's theorem. Verification of the method is proposed by both forward solution of the inverse problem and by experiment. Solutions to inverse problems are necessary when property data is to be recovered from temperature and/or heat flux measurements at surfaces, and accurate three-dimensional methods are not available. The work has application in providing real-time control of spray cooling in metallurgical heat treating and the cooling of high temperature materials in manufacturing processes as well as in advanced electronic cooling.